Investigations into the Syntheses and Structures of Layered Intercalation Compounds

The proposed research may be nominally divided into two parts. The first area is concerned with the synthesis and study of layered phosphonates. The chemistry outlined is a mixture of synthetic chemistry and solid-state NMR. The second area is concerned with synthesis and study of layered systems for light induced charge separation or electron transfer. The proposed studies have important relevance in many fields of science and engineering.